L-functions and Multiplicative Number Theory

The investigator and his colleagues study various problems in
the analytic theory of L-functions and mean values of multiplicative
functions. In particular the investigator aims for an improved
understanding of the distribution of zeros of L-functions,
their behaviour at special values, and the size of extreme values
in the critical strip. The second main aim of this project is
to describe the spectrum of possible mean-values of multiplicative
functions whose values at primes are constrained to lie in special
subsets of the unit disc. The investigator, in collaboration
with Granville, intends to develop further the close connection between
such mean values and solutions to a family of integral equations.

This project concerns problems in the area of multiplicative
number theory. A fundamental problem in this area is to understand
the zeros of the Riemann zeta function and other L-functions. These
functions encode much information about prime numbers, and
other arithmetic objects. Besides being of intrinsic interest to
mathematicians, ideas emerging from these problems have found use
in computer science, cryptography and coding theory.